1996 Gordon Conference on Organic Thin Films

This award from the Analytical and Surface Chemistry Program of the Division of Chemistry and the Solid State Chemistry and Polymers Program of the Division of Materials Research provides partial support to enable the participation of ten to twelve graduate students and postdoctoral researchers in the 1996 Gordon Research Conference on Organic Thin Films. This conference brings together leading researchers from diverse scientific backgrounds to address topics at the intellectual frontiers of this fundamentally exciting and technologically important multidisciplinary area. Participation in this conference by the targeted young researchers will provide them with a unique opportunity to gain deep insights and broad perspectives in this rapidly evolving field. This award enables the participation of young researchers in the 1996 Gordon Research Conference on Organic Thin Films. Developments in this area hold promise for broad fundamental and technological impacts.